Development of Kinetic-Approach-Based Two-Fluid Models for Two-Phase Turbulent Flows

ABSTRACT
CTS-0237951
F. Mashayek, Univ. of IL - Chicago

The focus of the revised proposal in on development of DNS and RANS methods for simulation of particle laden gas flow, dispersed two-phase flows. The results will have broad applications to environmental combustion in turbulent flows with either solid powder or droplet sprays, and the plan is to include heat transfer and compressible flow effects in the simulations. This project will build on the recent work by the PI for LES models of turbulent two-phase flows and should provide engineering tools for the prediction of turbulent particulate flows that are more reliable than at present.

A key element of the project is to use the probability density function (PDF) for particle phase space and to use the Louiville equation as the starting point for deriving the LES and RANS models.